RUI: Supersymmetry and Quantum Field Theory

Research in theoretical physics will focus on the use of supersymmetry to
determine detailed properties of magnetic monopoles, elementary particles,
and strings. Supersymmetry is a hypothesized symmetry of nature that can
potentially solve several mysteries in elementary particle physics and
astrophysics. The use of supersymmetry in the present work will lead to
exact rather than approximate results, and so will yield new insights into
how the elementary particles interact with each other.